Mathematical Sciences Research Equipment 1989

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used to support five research projects in the Center for the Mathematical Sciences at the University of Wisconsin-Madison: Spline Functions and Surfaces, directed by Carl de Boor; Dynamics of Viscoelastic and Related Materials, directed by Sangtae Kim, David Malkus, John Nohel, Bradley Plohr, and Marshall Slemrod; Computational Fluid Mechanics, directed by Robert Turner, Jean-Marc Vanden-Broeck, and John Strikwerda; Large-Scale Optimization, directed by Renato De Leone and Olvi Mangasarian; and Distributed Parameter Control and Computation for Mathematical Modeling, directed by David Russell.